Technology Reform and Network Specialist Inservice Training (Transit) Project

This project belongs to the special Teacher Enhancement program, "Projects to Promote the Effective Use of Technology in the Teaching of Science and Mathematics". The Ohio State University will conduct a five-year program to establish a network of eighteen regional sites for implementing new and emerging technology enhanced mathematics programs in middle and secondary schools. Each site will be staffed by a team that will train middle and secondary mathematics teachers in the region as technology specialists. In turn, the technology specialists will provide in-service and support for local mathematics teachers. The project will produce thirty-six technology specialists and six modules to serve as a base of examples for the in-service work. The technology focus will be on advanced graphing and symbol manipulating calculators. This focus represents the technology area of highest priority within the mathematical community at this time. Ohio State University and participating school districts will contribute an amount equal to 41% of the National Science Foundation award.